Sink-Source Transition in Leaves: A Model

As a leaf develops it is converted from a net user of carbohydrate to a net exporter. This event influences patterns of growth and productivity. The transfer of sugars form leaf to phloem is called phloem loading. The accepted model for this process is that surcose is transferred across cell membranes by selective carriers. An alternative mechanism is proposed in which sucrose passes from cell to cell to the phloem through plasmodesmata, tiny protoplasmic connections that provide cytoplasmic continuity between cells. In the phloem, the smaller sucrose molecules are converted to larger sugar molecule that cannot pass back through the plasmodesmata. The sugar is thus trapped in the phloem cells. The morphology and dimensions of plasmodesmata will be studied along with the enzymes involved in converting sucrose into larger sugars.//